SSC: Science Summer Camp - (Camp Promise)

SSC-9353251 Rutgers University Busch Campus New Brunswick, NJ Iozzi, Louis, Husain, Daulat and Johnson, Patricia "Science Summer Camp - (CAMP PROMISE) This camp will act as a feeder to the college bound programs as well as initiate a consolidated and coordinated effort to effect minority participation in science and science education. The goals set by this project are to significantly increase the participation and commitment of minority students in the sciences, and to heighten the level of awareness of students with potential careers in science and mathematics, including school teaching. Forty eight minority students from underrepresented and disadvantages groups, who have completed their 7th and 8th grades, will be eligible to attend the camp. Recruitment will be from the state of New Jersey, based on "need" and interest in the field of science, mathematics and engineering. The summer session of Camp PROMISE will be the key component, and consist of three inter-related components: a) an enrichment apprenticeship component, where students will be assigned as apprentices to faculty/scientists for a week at a time; b) a remedial academic component which will offer classes in mathematics and English) a cultural resident component where participants will room and board on campus during the week. The program will operation weekdays only. The academic year component will have two follow-up meeting, one in Fall 1993 and the other in Spring 1994. Portfolio assessment of students' progress using lab books, and other daily lesson plan data will be primarily anecdotal and qualitative. However, student attitude test will be analyzed and the progress of the student monitored by selected teachers. A broad range of participatory activities, not experienced in school classrooms, will help bring the "wonder" of science and encourage students to select science courses at high school. The ultimate aim is to influence minority students to make academic preparat ions in middle and high school so as to be able to make career choices in the are of science, engineering and mathematics. Funding for this program is therefore solicited.